Collaborative Research: The Development of Spatial Coding

Human beings, like all organisms that move in the world, must remember
the location of objects and goals in order to live successfully. Unlike
other organisms, human beings can learn about locations both
symbolically and through direct experience. The goal of this research
program is to understand the development of spatial competence.

Recent work has shown that many spatial skills arise earlier in
development than had hitherto been supposed. However, early success may
reflect the use of simple processes, different from mature coding,
rather than innate specification of spatial competence. Three sets of
studies will be carried out to address this general issue. In one line
of work, the focus is on the nature of infant location coding as
inferred from their looking times to events. In a second line of work,
the aim is to evaluate a recent claim that children show evidence of an
innately-specified "geometric module" in their searches for hidden
objects. The third line of work will examine how children use simple
maps to find hidden objects.

Finding evidence for developmental transformations in spatial
development as well as for strong initial starting points is important
theoretically, as it provides support for a position in which biological
specification and environmental interaction interact to produce
development. In practical terms, support for such a position would
indicate that certain environmental experiences may be necessary for
normal development, and could even be manipulated to allow optimal
development.